Numerical Computation of Black Hole Coalescence

Drs. L. Kidder and S. Teukolsky will carry out research in numerical
gravitation, and will develop new algorithms for supercomputer
simulations of solutions to the Einstein Equations. The focus is to
track the coalescence and merger of binary black hole systems and to
calculate the gravitational waveform emitted by such processes. The
investigators will apply the computational technique of pseudospectral
collacation to this problem. The study of reliable waveforms is particularly timely.

The theoretical solution of this problem is remarkably difficult.
While the technique used in this study are new for this application, it
has proven successful in many other areas, and shows much promise for
improving computational efficiency in this area. The radiation
processes under study are the primary target for gravitational wave
detectors, such as LIGO, currently under construction.